CAREER: AutoEdge: Deep Reinforcement Learning Methods and Systems for Network Automation at Wireless Edge

The next-generation wireless technology promises advanced network capabilities with extremely high bandwidth and ultra-low latency that will catalyze a wide range of new mobile services and customer applications in vertical sectors such as transport, media, and manufacturing. The explosion of networking connections and the diversification of network services will dramatically increase the complexity of network management. This CAREER project aims to develop domain-specific deep reinforcement learning (DRL) methods and systems to automate the configuration, provisioning, and orchestration of network resources and services in next-generation wireless edge computing networks. The successful completion of this CAREER project will advance the understanding of the inherent relationships among DRL, communications, computing, and networking and lay a solid foundation for studying learning-based algorithms and systems for network automation in wireless edge computing. Besides, the technologies developed in the project will significantly reduce the operational cost of wireless networks and thus allow affordable high-performance wireless connectivity for all communities including low-income and remote communities. Moreover, the project provides interdisciplinary education to cultivate next-generation engineers and researchers who master both advanced wireless and Artificial Intelligence (AI) technologies via the integration of research into education and industrial-academic and cross-disciplinary collaborations.

This CAREER project aims to develop deep reinforcement learning (DRL) methods and systems that automate end-to-end resource orchestration in wireless edge computing networks. Toward this end, two fundamental research problems are investigated: 1) how to design domain-specific DRL that can effectively solve end-to-end orchestration problems in large-scale wireless edge computing networks and 2) how to efficiently deploy DRL-based orchestration solutions in large-scale networking systems. To solve the first problem, the project studies the design of states, reward functions, training algorithms, and neural networks of domain-specific DRL, develops methods of handling various constraints in DRL-based end-to-end resource orchestration to avoid constraint violations, and designs context-aware multi-agent DRL methods to leverage domain knowledge of wireless edge computing to improve the learning efficiency of DRL. To solve the second problem, this project develops policy distillation methods to address the DRL deployment issues caused by the divergence between network simulations and real network systems, and designs cross-scale knowledge transfer methods to address the DRL deployment issues caused by the mismatch of the dimensions of small-scale testbeds and large-scale wireless edge computing systems. The project also develops an augmented network simulator and an edge computing system prototype for evaluating DRL-based end-to-end orchestration solutions.